Computer Operating Systems Instructional Improvement Project

This project permits undergraduate students in computer science to experiment with practical operating systems programming in a laboratory environment. Working in teams, students both modify and enhance an existing operating system. The laboratory that supports this project includes PC-AT clones (with floppy and hard drives) running the MINIX operating system. The laboratory experience permits students to gain practical knowledge about operating systems, knowledge that is often overlooked in a traditional operating systems course. This award is being matched by an equal sum from the grantee.